US-France Cooperative Research: Program to Study the Southwestern Atlantic

This award will support collaborative research in physical oceanography between Dr. Silvia Garzoli, Lamont-Doherty Geological Observatory of Columbia University and Dr. Christine Provost, Laboratory of Oceanography and Climate, University of Pierre and Marie Curie, Paris, France. The objective of the project is to analyze data from an international high resolution study of the confluence zones of the Brazil and Malvinas currents. A large international effort by the US, France and Argentina to study the dynamics of the Southwestern Atlantic will be completed by early 1990. The program consists of intensive field work based primarily on the deployment of a large array of instruments (inverted echo sounders and current meter moorings) for a period of 18 months, the collection of infrared satellite images for a period of two years, and the realization of three hydro- graphic/nutrients extensive surveys. The study will result in a jointly-collected, valuable and extensive set of oceanographic data available for calibration, reduction, and analysis. This award will provide funds for Dr. Garzoli to visit France for the purpose of establishing standards for common data calibration. This will facilitate the joint data analysis and consequent joint scientific interpretation of the whole system of circulation and thermohaline variability in the Southwestern Atlantic.